National Center for e-Design: Annexation of Carnegie Mellon University

Carnegie Mellon University (CMU) plans to join the existing Industry/University Cooperative Research center for e-Design and Realization of Engineered Products and Systems as a full university research site. The emphasis of Carnegie Mellons participation will be directed at technologies involved in the design of medical devices. The research program will capitalize upon the technologies of the e-Design center while building linkages between the University of Pittsburghs medical research expertise and CMUs excellence in engineering, design, robotics, and computer science.